PBI: Collaborative Research: The Megadiverse, Microdistributed Spider Family Oonopidae

Researchers from three U.S. museums and two U.S. universities, plus a
worldwide group of over 20 colleagues, will collaborate to conduct a global
survey and inventory of the dwarf hunting spiders. These animals are very
poorly known; preliminary data indicate that the 459 currently described
species represent only about 20% of the actual diversity of the group. The
team will assemble and sort the specimens available in collections and
acquire new material through 12 expeditions that will concentrate on
securing samples of forest floor and canopy-dwelling species. Team
members will build Internet-accessible databases of the species, all specimen locality
data, and images; a new application will allow team members to enter descriptive
data into a multi-user database, in a highly structured format that will
allow direct use of that information in formal descriptions for
publication, on species web pages, in phylogenetic analyses, and in
interactive keys. Automated identification systems, using artificial
neural networks, will be developed, and the accuracy of those systems will
be compared with that achieved by workers, ranging from total beginners to
knowledgeable specialists, using interactive keys to the same species.

Other impacts of the project include training several high
school, undergraduate, graduate, and postdoctoral students (with emphasis
on recruiting members of groups currently underrepresented in the science
workforce). Project outreach plans include a major traveling museum
exhibition designed to focus public attention on the importance and
excitement of biodiversity discovery and preservation. Extensive
public-aimed web materials will be developed that will be useful for
pre-college level teaching.